GOALI: Studies of Particle Nucleation, Growth and Transport in Advanced Semiconductor Processing Tools

Abstract
CTS-9909563
P.H. McMurry, S.L. Girshick, S.A. Campbell and U.R. Korshagen, U. of Minnesota
D. Jensen, Sematech
The purpose is to investigate the nucleation, growth and transport of contaminant particles in high-density plasmas with relevance in semiconductor processing tools. Experimental and modeling contributions in aerosols, plasma physics and chemistry will be included in an overall methodology to develop new generations of contaminant-free processes and processing tools. The University of Minnesota will collaborate with four industrial partners: Applied Materials (manufacturer of processing tools), SEMATECH (representing semiconductor device manufacturers), MicroTerm (small business company), and Sandia National Laboratories (for collaboration in aerosol particle formation and transport modeling). A particle beam mass spectrometer developed in the University will be used to measure particle size distribution down to 5 nm at low pressures (1-10 mTorr) characteristic in high density plasma processes. Modeling the particle nucleation and growth will include complex chemistry, fluid flow, heat transfer, and the effect of electrostatic forces and of coagulation. This is a Grant Opportunity for Academic Liaison with Industry (GOALI) project. If successful, the research project will lead to better understanding and design of particle formation and removal in semiconductor processing environment.